Mathematical Sciences: Representations of Reductive Algebraic Groups and Related Groups

The principal investigator will work on the representation theory of reductive algebraic groups and related finite and infinitesimal groups. The particular topics to be investigated are: constructions for the reduction mod p of irreducible complex representations of the finite groups; determination of the Loewy series of principal indecomposable modules for finite groups of Lie type; support varieties of Weyl modules and simple modules; the adjoint representation on the regular functions on nilpotent orbits and their closures. A group is an algebraic structure with a multiplication defined on it. Finite groups may be viewed as algebraic sets of transformations of vector spaces. Their properties and structure can be determined through these representations.